Operation of the Ocean Bottom Seismic Instrumentation Pool at Woods Hole Oceanographic Institution for the Marine Geosciences Community

Abstract

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).
The purpose of this award is to construct new Ocean Bottom Seismometers to be deployed to the Cascadia margin as part of a joint Earthscope/Margins program to understand better the mechanisms and significance of normal earthquakes, slow earthquakes, episodic tremor and slip and other seismic/geodetic phenomena.